Picosecond Phenomena and Devices

The ability to manipulate the output of a semiconductor laser at a very high rate is necessary if optical communication and signal processing applications are to achieve full potential. This effort will investigate these and other fundamental problems in this area. In addition, the trade-offs between speed and pulse spreading factors has been carefully considered.